Dynamics and Interactions of Molecules on Surfaces

Douglas Doren is supported by a grant from the Theoretical and Computational Chemistry Program to study the dynamics and interactions of molecules on surfaces. This research has a direct bearing on our understanding of the role which catalytic surfaces play in promoting chemical reactions. Doren will use theoretical molecular dynamics to determine the underlying interactions and mechanisms involved in surface diffusion rates of molecular adsorbates. He will explore the ways in which molecules differ from atoms in their modes of interaction with surfaces including the qualitative topology of the potential energy surface, the adsorbate mass distribution, and possible modes of coupling between diffusion and adsorbate bending or vibrational modes. The result of this research will be a model of interacting, coadsorbed molecules which will be the foundation for general studies of coverage effects on surface dynamcis and catalysis.